CISE Research Resources: Resources for Research in Scalable Parallel Computing and Networking Simulation

EIA-0130847
Gopal Gupta
University of Texas Dallas

CISE Research Resources: Resources for Research in Scalable Parallel Computing and Networking Simulation

The PIs seek to acquire a network of six 4-cpu multiprocessors and a data storage system connected with 100 Mbit/s Ethernet. This equipment will be used for building scalable parallel and distributed systems for tabled logic programming (LP), for computational geometry projects, as well as for quantitatively studying mobile ad-hoc networks (MANETs). The logic programming project seeks to combine dynamic reordering of alternatives with stack-splitting for realizing or-parallel tabled LP systems on distributed networks of SMPs. The computational geometry projects are related to research on design and implementation of scalable parallel and distributed algorithms for the weighted regions optimal trajectory problem, with applications in surgery planning, geographic information systems, and radiation therapy. The parallel implementations will be carried out on the network of SMPs. The MANET project will conduct a quantitative evaluation of unidirectional wireless links in MANETs: the impact of interference and battery life on the occurrence of unidirectional links, and MAC sub-layer issues for such links. Routing protocols designed to use both bidirectional and unidirectional links will be evaluated via simulations. The network of multiprocessors and the data storage system will be used, respectively, for conducting large simulations and for storing large simulation data.